Reforming the Preparation and Professional Development of Elementary and Middle School Mathematics Teachers

9354104 Sowder This is a four-year project at $751,309 at San Diego State University to produce mathematics content course modules for use in teacher preparation and teacher enhancement for elementary and middle school teachers of mathematics. The project will develop modules, including the use of CD-ROM technology, that focus on providing a deep understanding of the mathematics the participants ar expected to teach. Modules address: number sense with whole and rational numbers, proportional reasoning, measuring, spatial sense and geometry, exploring data, chance, patterns and functions, and mathematical change. The materials will be developed to provide course instructors the opportunity to model the types of instructional delivery expected of teachers in grades K-8, both in their classroom and through the inclusion of video of student interviews and classroom episodes from grade K-8 situations. The project will be done in southern California, and modules will be available nationwide upon completion. the modules will be in software and CD-ROM format allowing instructor capability to modify to special needs. Cost sharing by SDSU, school districts, and other local projects is approximately 25% of the total project cost.